Sensing Science through Modeling: Developing Kindergarten Students' Understanding of Matter and Its Changes

Despite recent research demonstrating the capacity of young children to engage deeply with science concepts and practices, challenging science curriculum is often lacking in the early grades. This project addresses this gap by developing a technology-supported, physical science curriculum that will facilitate kindergarten students' conceptual understanding of matter and how matter changes. To accomplish these goals, the curriculum will include opportunities for students to participate in model-based inquiry in conjunction with the use of digital probeware and simulations that enable students to observe dynamic visualizations and make sense of the phenomena. To support the capacity of kindergarten teachers, a continuous model of teacher development will be implemented.

Throughout development, the project team will collaborate with kindergarten teachers and more than 300 demographically diverse students across eight classrooms in Massachusetts and Indiana. A design based research approach will be used to iteratively design and revise learning activities, technological tools, and assessments that meet the needs and abilities of kindergarten students and teachers. The project team will: 1) work with kindergarten teachers to modify an existing Grade 2 curricular unit for use with their students; 2) design a parallel curricular unit incorporating technology; 3) evaluate both units for feasibility and maturation effects; and 4) iteratively revise and pilot an integrated unit and assess kindergarten student conceptual understanding of matter and its changes. The results of this investigation will contribute important data on the evolving structure and content of children's physical science models as well as demonstrate children's understanding of matter and its changes.

The Discovery Research K-12 program (DRK-12) seeks to significantly enhance the learning and teaching of science, technology, engineering and mathematics (STEM) by preK-12 students and teachers, through research and development of innovative resources, models and tools (RMTs). Projects in the DRK-12 program build on fundamental research in STEM education and prior research and development efforts that provide theoretical and empirical justification for proposed projects.